Digital Interactive Entertainment and Simulation Technology: A new curriculum and source of professional workforce for the Digital Gaming Industry

This project is developing and offering an Associate of Applied Science Degree in Digital Gaming Programming, also known as Digital Interactive Entertainment and Simulation Technology (DIEST). The associate of applied science degree program is a further extension of a diploma in digital gaming that was initiated in the fall of 2005 and is designed to serve a growing need for digital gaming for the more than thirty companies that are located in the region. The new associate degree program is an interdisciplinary program that integrates the cultural and ethical values of art, music, and literature with the sciences and advanced mathematics that normally characterize computer science.